US-Federal Republic of Germany Cooperative Research: Crystal Structure of Plakalbumin

This award supports Dr. H. Tonie Wright of Virginia Commonwealth University for a three month visit to the laboratory of Dr. Robert Huber of the Max Planck Institute for Biochemistry in Martinsried, Federal Republic of Germany. They share an interest in the structures of a class of proteins called serpins, which includes antithrombin III, alpha-1-proteinase inhibitor (API), and ovalbumin (the principal protein constituent of egg white, and not a protease inhibitor.) The goal of their collaboration is to establish the degree of similarity between the tertiary structures of plakalbumin (a cleavage product of ovalbumin) and API. The amino acid sequences of ovalbumin and API are about thirty percent identical, and the many close sequence identities among the other members of this protein family has supported the assumption that these proteins share a common tertiary structure. Dr. Huber has determined the crystal structure of API and refined it to high resolution. His laboratory is highly regarded for its success in solving structures by means of the molecular replacement method and other procedures and programs developed there. Dr. Wright has been determining the structure of plakalbumin and has recently produced an electron density map using multiple isomorphous replacement (MIR) data. The resultant structure appears completely different from that of API. Since Dr. Wright heads a small x-ray crystallography group, the collaborative arrangement with Dr. Huber's larger and more experienced laboratory offers access to equipment and an opportunity to gain experience in methods not available in Virginia to resolve this discrepancy. Identities of sequence among proteins are used extensively to establish evolutionary and functional relationships. It has been known for some time that proteins of widely divergent sequence can share common structural features as a result of convergent evolution. However, the converse case, of common or similar structures in two proteins with no relationship of tertiary structure, has long been considered impossible, since sequence is the primary determinant of protein structure. The planned collaboration focuses on a discrepancy that, if confirmed, would force a reconsideration of the relationship between amino acid sequence identities and the folding of proteins, as well as the evolutionary relationships of the proteins in the serpin family. Further interpretation, refinement and comparison of the plakalbumin structure with that of API is necessary to determine whether this significant discrepancy is real or whether some error or other explanation can be discovered to account for it.